CAREER: Ion Beam Assisted Deposition of Magnetoresistive Films

The objective of this CAREER research program is to determine the effects of ion beam bombardment on the magnetic and electrical properties of evaporated Permalloy-nitrogen-iron thin films. The electrical, magnetoresistive and magnetic properties of the films are measured as a function of ion species, flux and energy, substrate temperature, and post-deposition annealing treatment. The microstructure of the films is characterized and correlated to the electrical and magnetic properties. This research is a collaborative project with IBM Almaden Research Center. The educational objectives include course and curriculum development in electronic, optical and magnetic materials, as well as undergraduate and graduate research supervision, advising, and educational outreach. The curriculum development efforts are focused on an interdisciplinary course sequence for electrical and materials engineering students in electronic materials processing in a team-based, open-ended design laboratory setting. %%% Ion beam bombardment during electron beam evaporation of Permalloy films is used to imp rove the magnetoresistive response of films used in magnetoresistive read heads in magnetic disk drives. ;